Particle Motion in Rotating Filter Separation

This project involves the measurement of particle velocities in a rotating filter system by the Pulsed Light Velocimetry technique. Particular emphasis will be on the role of secondary flows (e.g. Taylor vortices) in preventing plugging, the effects of particle sedimentation in the separation, and the influence of particles on flow stability. Overcoming plugging should greatly improve the performance of filters, which are important to many industrial processes.